Integrating Graphics Workstation Technology into the Computer Science Curriculum

This project supports curriculum improvements in computer science at this institution. Using graphics-based, windowed workstations that are networked, existing courses have been modified and a new course in computer graphics introduced. The equipment supporting this project includes: Apollo DN3000 and DN4000 workstations; DEC, Apple and Tektronix printers; and software including UNIX, Modula2, Lisp, and C. In addition to programming skills, students are exposed to software development, network management and graphic tools. This award is being matched by an equal sum from the grantee.